Introducing Molecular Biology into the Undergraduate Curriculum: A Laboratory Workshop

9353970 Winfrey This project involves an intensive two and one-half week laboratory workshop in molecular biology for undergraduate faculty. The workshop allows 20 participant faculty per year to learn the basic principles, techniques and applications of modern molecular biology. Consideration is given to faculty in need of re-training or those who teach women and minorities. The principal goal of the workshop is to provide participants with hands-on techniques, experiences, and educational materials to implement effective undergraduate molecular biology laboratory instruction into their curriculum. Participants isolate and separate DNA, clone genes, and analyze the cloned genes by Southern blotting, nucleic acid hybridization, the polymerase chain reaction (PCR), DNA sequencing, and computer assisted sequence analysis. Also, laboratories are supplemented with lectures on the principles of methods used and by seminars presented by experts from academia and industry on various applications of molecular biology. Sustained interaction among the participants will be maintained by networking and holding follow-up workshops and a mini-symposium after completion of the original two and one- half week workshop course. ***